TO TRANSFER $8,500 TO NATIONAL FINANCE CENTER TO PRODUCE, PUBLISH, PRINT AND ADDRESS A PERSONAL BENEFITS STATEMENT FOR EACH EMPLOYEE WITH MORE THAN ONE YEAR OF SERVICE.

TO TRANSFER $8,500 TO NATIONAL FINANCE CENTER TO PRODUCE PERSONAL BENEFITS STATEMENT.